Acquisition of a Gas Chromatograph with Mass Selective Detector

A gas chromatograph with a mass-selective detector (GC/MSFD) is acquired in order to improve the chemical analysis capability in the combustion and fuels research group. The equipment will be used to support development of models of fundamental processes controlling hydrocarbon combustion, and explore new engine designs to improve efficiency and reduce emissions.